Development of a Wide-Field, Prime-Focus, Optical CCD System for the Steward 2.3m Telescope

AST-9871490 Olszewski, Edward W. Funds will be used to develop a wide-field, prime-focus, optical CCD system for the Steward 2.3 meter telescope. ??